Capitalization Funds for a Multicomputer Operating System

Little systems software for distributed memory multicomputers is portable to other multicomputers; as a result, users must pay as much attention to the attributes of the hardware they use as to their research. Also, researchers working on different multicomputer hardware can rarely share applications software. In this setting, NSF can take an active role in catalyzing the evolution of multicomputer systems software. During a year starting September 1, 1991, the Ohio Supercomputer Center will port a portable operating system foundation, named Trollius, to multicomputers based on fast, leading microprocessors, such as the Intel i860 and Transputer. Multicomputers made by several vendors will thus run compatible systems software. Trollius is a non- proprietary, "open" operating system for distributed memory parallel computers. Small groups conducting scientific research are frequently the end users who will benefit from having Trollius on their computer systems. Research areas pursued at current Trollius sites include computer algorithms development, parallel processing research, and computational mechanics. The project will increase the useful lifetime of software developed by research projects and will expand the use and usability of multicomputers in the U.S.